Collaborative Research: Gradients of Origination and Extinction in Benthic Marine Invertebrates: Comparative Analysis in the Fossil Record

9317372 Valentine PIs will document Neogene molluscan patterns in order to test hypotheses on how origination and extinction vary along environmental gradients at the species level, and, by comparison to earlier results, across the taxonomic hierarchy and from background to mass extincttion. Latitudinal and bathymetric patterns will be examined, using databases.